Dissertation Research: Bio-Anthropological History of Native American Populations Reconstructed with Nuclear DNA Variation

The primary objective of this research is to clarify a number of aspects of the peopling of the New World. It has been known for decades that Native Americans are derived from an Asian ancestor. However, many questions remain, including a number relating to the population size and structure of the first Americans. The investigators propose to gather a sizable body of data on variation in nuclear genes in samples of Native Americans representative of both North and South American Amerindians. These data will be used to assess hypotheses based upon alternative population histories. Similar reconstructions have been analyzed based upon mitochondrial DNA data. As mtDNA is inherited in a very different manner than nuclear DNA, comparisons between the two data sets will be instructive.